The Conference on Ramsey Theory and Topological Algebra, Oxford, OH, July 2008

The Conference on Ramsey Theory and Topological Algebra is a conference designed to disseminate new findings in the areas and to honor Neil Hindman on his 65th birthday, who is one of the top experts in the fields. Hindman is also known for directing more doctorate degrees given to African Americans than anyone else in modern history.

The invited speakers are.

Vitaly Bergelson, The Ohio State University
Hillel Furstenberg, Hebrew University
Imre Leader, Trinity College, Cambridge
Randall McCutcheon, The University of Memphis
Dona Strauss, The University of Hull

The conference expects to have approximately 100 mathematicians and 20 graduate student participants. The conference will be held at Miami University in Oxford, Ohio. Contributed talks will also be given. The homepage for the conference is http://www.units.muohio.edu/sumsri/hindman2.html